RUI: A Gamma-Ray Burst Counterpart and Afterglow Observing Campaign at The College of Charleston

AST-0407320
Giblin

This project will continue development of a Gamma-Ray Burst (GRB) rapid response observing campaign at the College of Charleston, in collaboration with the University of the Virgin Islands. Optical and long-wavelength afterglow observations of GRBs are invaluable for understanding their nature. The NSF-supported updated Etelman Observatory in St.Thomas is very well placed geographically to conduct such studies, and its extreme eastern location should allow recovery of events that will have faded before they come into view at other telescopes. The current research comprises the acquisition, analysis and interpretation of afterglow data, including light curve modeling, probes of outflow geometries and progenitor environments, measurement of color indices and break times in the light curves, and comparison with high energy prompt emission.

This team and these institutions have a rich tradition of undergraduate research, which will continue with the support of the current program. The system to be created will also join other telescopes across the globe in GRB follow-up campaigns, which should lead to varied collaborations and enhanced scientific return.